Delta Agriculture Middle School Applied Life Science (DAMSALS 2)

This is a 3-year Information Technology (IT) project, "DAMSALS," to provide 140 contact
hours of professional development for 72 science, technology and mathematics teachers who in turn will provide 30 hours of staff supported IT instruction for 180 students. The project
uses the integrated science approach of past professional development efforts to deliver
agriculture-related concepts. Participants use GPS devices and graphing calculators with
CBLs to collect data. On-site visits, compressed video meetings and Blackboard
discussions support implementation during the academic year. Participants include students and teachers in grades 7-12 from rural schools in the Mississippi River Delta of northeast Louisiana.